Student Participation in 2001 Workshop on Nonneutral Plasmas

This award provides support for student attendance at the 2001 Workshop on Non-neutral Plasmas. The workshop is being held at the University of California, San Diego, from 30 July to 3 August, 2001, and brings together about 120 plasma and atomic physicists working on diverse aspects of non-neutral plasmas and beams.